Support to Interagency Arctic Policy Committee Staff

ABSTRACT CATE 9806972 This Interagency Agreement supports activities of the Interagency Arctic Research Policy Committee (IARPC) for which NSF has lead agency role. These activities include editing and preparation of the camera copy of the Spring and Fall 1998 and 1999 issues of the Journal, Arctic Research of the United States. The Journal serves an essential step in fulfilling the requirements of Public Law 98-373, the Arctic Research and Policy Act. It contains information on research activities of the Federal agencies involved in the Arctic and report and minutes of meetings from the Arctic Research Commission and IARPC. Under this agreement, CRREL also provides editorial support services for the U.S. Arctic Research Plan and the IARPC Report to Congress.